COLLABORATIVE RESEARCH: Understanding Climate Change During the Final Stages of Late Paleozoic Gondwanan Glaciation - An Integrated Data-Model Study

ABSTRACT

COLLABORATIVE RESEARCH: UNDERSTANDING CLIMATE CHANGE DURING THE FINAL STAGES OF LATE
PALEOZOIC GONDWANAN GLACIATION - AN INTEGRATED DATA-MODEL STUDY
Isabel Montanez, University of California, Davis
Vladimir Davydov & Mark Schmitz, Boise State University
Chris Poulsen, University of Michigan
Neil Tabor, Southern Methodist University
Recently developed paleoclimate archives reveal a much more dynamic transition from the late
Paleozoic Gondwanan ice age to a greenhouse world than previously considered - one characterized by
considerable co-variability in climate and pCO2. Recently documented short-lived (1 to 4 m.y.) episodes
of glaciation appear to coincide with large magnitude shifts in atmospheric pCO2, marine and continental
temperatures and relative sea-level suggesting a CO2-climate-glaciation link. This link, however, remains
untested. We propose an interdisciplinary study focused on significantly improving our understanding of
the evolution of the late Paleozoic climate system, and the mechanisms that triggered climate change
during the Earth's last period of transition from icehouse to greenhouse states. The research is designed to
test two hypotheses: (1) that atmospheric CO2 variability was the primary driver for repeated growth and
retreat of continental ice sheets, and, in turn, (2) that late Paleozoic ice sheets strongly influenced global
climate, particularly in the tropics. Specific basins in central and eastern Europe and western Argentina
have been targeted given their stratigraphic and paleogeographic coverage, presence of marine, paralic
and paleosol-bearing terrestrial deposits, and their existing biostratigraphy and potential for further
radiometric dating (i.e., multiple intercalated volcanic tuffs) and biostratigraphic analysis. This research
has three major objectives:
* To establish a radiometrically calibrated, chronostratigraphic framework (Gzhelian to early Middle
Permian) through the integration of new and existing bio-, cyclo-, and chemo-stratigraphic (87Sr/86Sr)
data with U/Pb dating of volcanic tuffs, and the application of these integrated data to multiple
quantitative tools (CONOP, RASC, CASP, GraphCor).
* To further develop and calibrate high-resolution, quantitative proxy records of paleo-atmospheric
pCO2, paleo-precipitation, and marine and terrestrial paleo-temperatures. This includes critical
evaluation and further development of new quantitative proxies as well as direct comparison of proxy
records to sedimentologic evidence for glaciations and 'warmings' in southern Gondwanan
successions.
* Development of a theoretical climate framework for the late Paleozoic glacial-interglacial oscillations
using three-dimensional climate models to quantify the sensitivity of ice sheets on Gondwana to
pCO2, determine the role of ice sheets in driving global climate change, and make climate predictions
that can be tested through comparison with the proxy records.
Broader Impacts: The proposed research will offer four major contributions to the broader scientific
community: (1) a reconstruction of the late Paleozoic climate system at an unprecedented level of
resolution and accuracy, (2) an important test of the pCO2-climate paradigm for climate evolution through
Earth history, (3) documentation of marine-terrestrial climate linkages at unprecedented temporal
resolution for the Paleozoic, and (4) the first test of proposed correlations of cyclothemic successions in
eastern Euramerican and North American basins, and of linkages to the Gondwanan glaciosedimentary
record. In addition, to the planned cross-disciplinary training of undergraduate and graduate students, the
PIs will integrate their research efforts into three educational outreach programs designed to enhance the
research and teaching opportunities of underrepresented undergraduate students and high school science
teachers. We will make our data and model simulations available to the greater scientific community by
importing them into the CHRONOS System (and its partner website, PaleoStrat), a web-based interactive
resource with which PI Davydov is directly involved.